Symposium on Spin Physics

This award will enable junior researchers to attend the upcoming
symposium on spin physics to be held at the University of Washington.
The meeting will bring together many experts in the field to discuss
present results and future plans, which will capitalize on several
experimental facilities that have recently become available.